High-Performance Computational Methods for Coupled Field Problems

The Grand Challenge Application Groups competition provides one mechanism for the support of multidisciplinary teams of engineers and scientists to meet the goals of the High Performance Computing and Communications (HPCC) Initiative in Fiscal Year 1992. The ideal proposal provides not only excellence in basic research: focussed problem with potential for substantial impact in critical area(s) of science and engineering, but also significant interactions between the various disciplinary and computational activities involving mathematical, computer or computational scientists, that would have an impact in high performance computational activity beyond the specific problem area(s) or discipline being studied. These are the goals of this project which is a collaboration between applied mathematics, astrophysics, computer and computational science, engineering, geophysical sciences, to develop parallel algorithms for problems relating to Coupled Fields and Coherent Structures and Geophysical and Astrophysical Fluid Dynamics (GAFD) Turbulence. The common denominator of the various application areas are performance measures, massive data sets, and the visualization of multi- terabyte data sets. In addition to the expertise at the University of Colorado at Boulder, scientists at the National Center for Atmospheric Research (NCAR) will contribute to geostrophic turbulence and ocean convection research, and a sub-contract will be given to the scientists at the University of Minnesota who will contribute expertise in both astrophysics and visualization.